U.S.-France Cooperative Research: Magnetic and Transport Properties of the Antiferromagnetic Phase of (TMTTF) 2 Br

9314246 Brown This two-year award supports U.S.-France cooperative research in condensed matter physics between Stuart Brown, University of California, Los Angeles, and Denis Jerome, University of Paris, Orsay. The objective of the research is to study the magnetic and transport behavior of materials related to a quasi one dimensional molecular salt known as Bechgaard salt. Hydrostatic pressure will be used. The U.S. investigator will conduct the characterization studies and provide the samples. The pressure-NMR measurements will be done in Orsay. This project takes advantage of the complementary expertise of the French investigators in NMR measurements and provides access to excellent high pressure NMR facilities in France. ***